Consumer Purchase Timing Decisions Under Uncertainty

The process by which consumers make purchase timing decisions is central to understanding a wide range of economic behaviors. Although this process may often be complex, at its center is a rather straightforward dilemma; how to balance the rewards of immediate consumption with the risks of delayed regret. The decision of when to buy a major durable, for example, requires one to weigh the lure of immediate enjoyment against the fear that a better product value may become available later. Likewise, the extent to which a consumer will stock up on a discounted grocery item depends on how the rewards associated with paying the lower-than-normal price are balanced against the perceived likelihood that the apparent "discount" is, in fact, a rather routine one. This research will explore the process by which consumers make sequential purchase timing and quantity decisions in uncertain dynamic environments. Through the use of interactive computer experiments, the research will explore the ability of consumers to form rationale sequential buying strategies under variations in the pattern and predictability of temporal price and product quality changes, uncertainty of future product demand, the risk and complexity of decisions, and the cost of sequential information gathering. The research should identify sets of sequential decision heuristics which will allow current formal behavioral theories of decision making under uncertainty to be extended to temporal domains.